Siliceous Paleoceanography: (Ge/Si) Opal

Germanium/silicon ratios will be measured in marine biogenic opal to characterize past variations in the oceanic silica cycle during the Cenozoic. Detailed (Ge/Si) opal records will define paleoceanography in the major ocean basins for time scales of 0-2.4 million years and 0-40 million years. Records across two time slices at high resolution display dramatic shifts in Ge/Si: 4 MY and 6MY. These analog Ge/Si data, combined with biogenic opal accumulation rates globally and in individual ocean basins, will permit the reconstruction of past variations in the global oceanic silica cycle. Studies of this type will describe global input and removal of silica to/from the sea by ridgecrest hot springs, continental rivers, burial of biogenic opal and siliceous production and accumulation. Siliceous paleochemical tracers such as (Ge/Si) opal will complement information derived from traditional carbonate clues ( 180, 13c, Cd/Ca, Li/Ca, Sr/Ca, 87Sr/86Sr) for areas and times where carbonates are not preserved, and for oceanic processes whose systematics are not recorded in calcareous microfossils.